Households, Popular Consciousness & Economic Crisis in Argentina and Mexico

This project studies changes in family and household ideology, organization and practices in the lower and middle classes of two cities in Latin America, one in Argentina and one in Mexico. At the present time Mexico is apparently recovering from a depression of 8 years, while Argentina is entering a new, more drastic stage of economic problems. The project will examine the survival strategies of households in two cities, looking at the internal organization of the households, how they manage their funds, investments, and time, and how they deal with changes in the labor market. The project will examine how people represent their household responsibilities to themselves and to others, and how they understand local, regional, national, and international economic changes. Methods include surveys, intensive interviews and participant observation, in collaboration with Argentinean and Mexican social scientists. This research is important because Latin America has undergone severe economic stress, and will continue to do so for the near future, at the same time that its population has become increasingly urban. Anthropological research has established the profound importance of the household in understanding how people cope with difficulties. This project will add to our knowledge by comparing similar households in countries at different stages of economic development. The ultimate goal is to construct a folk theory of labor economics and the international system, in order to understand how Latin Americans understand their economic plight. This sort of information will be important to policy makers in assessing the impact of different international policies on the urban population.